Pan-American Advanced Studies Institute on Concepts and Model Organisms in Regenerative Biology; Chile, November 2-11, 2010

0921489
Harland

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), will take place on November 2 through 11, 2010, at the Pontifica Universidad Catolica de Chile in Santiago, Chile. Organized by Dr. Richard Harland of the University of California, Berkeley, the PASI will address the topic of concepts and model organisms in regenerative biology by exposing participants to the fundamental concepts, questions, model organisms and research tools used in regenerative and developmental biology. Laboratory workshops will provide hands-on experience to students working with different organisms that exhibit regenerative properties.

The activity will train students before entering the pathway of becoming future researchers and educators in biology and related areas. Expected outcomes in this PASI will be to: foster cooperation between senior and junior investigators and provide an open forum for discussion of current topics relevant to science policy and education in the Americas. Results of the PASI will be disseminated through a website and a digital library.